EPSCoR Research Fellows: NSF Tracking Human Environment Dynamics in the Southern Plains During the Late Pleistocene Holocene Through Dental Ecometrics of Small Herbivorous Mammals

This Research Infrastructure Improvement (RII) EPSCoR Research Fellows project provides a fellowship to an Associate Professor of Anthropology and training for undergraduate students at the University of Tulsa. This work is conducted in collaboration with Prof. David Fox at the University of Minnesota. Through the fellowship, the Principal Investigator will analyze the fossilized teeth of small mammals and use the information gained about changes in environment and ecology to investigate how early human populations responded to ecological change over time. The project will blend anthropology, biology, and data science to create a new tool for modeling past environments using three-dimensional imaging and artificial intelligence. This research will promote the progress of science by clarifying how local ecological shifts influenced human survival and movement. This award will provide historical context to help communities understand and navigate changes in the modern environment. Furthermore, the project will expand the regional STEM workforce by teaching local students highly transferable skills in computer modeling and data analysis.

This project will develop a high-resolution paleoenvironmental predictive model using the dental ecometrics of small herbivores from the Southern Plains. By defining how past human populations adapted to climatic shifts during the Late Pleistocene and Holocene, this research will promote the progress of science and advance the national welfare by supplying an empirical baseline for contemporary ecological modeling. The methodology will combine three-dimensional dental microwear texture analysis and mesowear with high-resolution micro-computed tomography and artificial intelligence-based predictive algorithms. This initiative will improve the University of Tulsa's research infrastructure for high-resolution paleoecology, advancing faculty professional development in computational ecology and establishing specialized laboratory capabilities. Furthermore, the research activities will integrate directly with regional workforce development by training undergraduate students in quantitative data science, while expanding community scientific literacy through established museum partnerships. This project is supported by the EPSCoR Research Infrastructure Improvement Program: EPSCoR Research Fellows (ERF). The ERF program supports early- and mid-career investigators in eligible jurisdictions to develop collaborations at the nation’s private, government or academic research institutions.